NSF-SNSF: Hybrid Optical Metasurfaces: Towards Micro&Nano-Environment Control of Photocatalysis

This project seeks to create a new ways to use light to provide the energy for and precise control of chemical reactions. It addresses a fundamental challenge in sustainable manufacturing: improving reaction selectivity and efficiency while reducing energy use and unwanted byproducts by exploiting nanoscale control of electromagnetic fields and tunable microenvironments. The team will develop programmable light-driven microreactors that switch reaction outcomes by adjusting illumination conditions, enabling fine control that is difficult to achieve in conventional reactors. The work integrates complementary capabilities at Rice University and École polytechnique fédérale de Lausanne (EPFL) in Switzerland, coupling theory with controlled experiments to accelerate translation of fundamental insights into practical design rules. Outcomes will contribute to workforce development through interdisciplinary training at the interface of nanophotonics, thermal transport, and chemistry, and will provide an understanding of photochemical processes in confined environments. Results from this research could help transform chemical manufacturing, leading to more efficient manufacturing methods that ensure the Nation’s manufacturing excellence.

This project will establish a predictive, experimentally benchmarked framework for hybrid optical metasurfaces (HOMs)—photonic architectures that combine dielectric and metallic nanoantennas to achieve spatio-temporal control of photocatalysis and to extend this control by engineering confined microenvironments using HOM-in-microdroplets (HOM-μ). Rice University researchers will develop a multiphysics modeling platform that links (i) photon absorption and generation of non-equilibrium carriers (hot electrons and holes), (ii) charge transport and injection into adsorbates and catalytic interfaces, and (iii) coupled heat and reactant transport in electrolyte environments. This platform will enable quantitative predictions of reaction kinetics and selectivity under controlled illumination. EPFL researchers will fabricate and characterize HOMs and perform optical, photochemical, and spatially resolved electrochemical measurements using scanning photoelectrochemical microscopy (Photo-SECM), providing in situ maps of local activity and energy-dependent charge-transfer signatures to validate and refine the models. The research is organized into four work packages spanning HOM design and coupling between metallic and dielectric components, interaction with liquid environments through photothermal effects and droplet confinement, and a demonstration of light-controlled, tunable photocatalysis that directly tests the project’s design rules. Across all tasks, theory–experiment iteration will close the design loop by comparing model-predicted spatiotemporal fields and transport with measured reaction maps and selectivity trends, delivering transferable guidelines and modeling tools for energy-efficient, light-programmable photochemical microreactors.

This collaborative U.S.-Swiss project is supported by the U.S. National Science Foundation (NSF) and the Swiss National Science Foundation (SNSF), where NSF funds the U.S. investigator and SNSF funds the partners in Switzerland.